Group Travel to Participate in International Symposium on "Fiber Reinforced Structural Plastics in Civil Engineering" at IIT - Madras, India, December 18-22, 1995

9510234 Iyer This grant is for "Group Travel to International Conferences". Travel funds are awarded to enable ten U.S. Scientists to participate in an International Conference on "Fiber Reinforced Structural Plastics in Civil Engineering". The symposium is held in Madras, India, on December 18-22, 1995. The symposium is organized by the India Institute of Technology in Madras, India and the South Dakota School of Mines and Technology in Rapid City, South Dakota and co- sponsored by many national and international organizations.